NEESR-II: Dynamic Passive Pressure on Full-Scale Pile Caps

For bridges and other structures subject to lateral loadings, passive earth pressure contributes
significantly to overall stability. While the maximum passive pressure acting on pile caps and
abutment walls can readily be predicted, the issue of how passive pressure develops as a function of
deflection is more problematic. Furthermore, essentially all of the load-displacement relationships
currently used are derived from static or extremely slow loadings. Under seismic loading conditions,
both dynamic and cyclic effects are present which alter the load-deflection relationship. While cyclic
loading effects typically reduce the strength and stiffness of the soil, dynamic loading effects tend to
produce an apparent increase in soil strength and stiffness due to material and radiation damping.
Faced with the lack of well-defined load-displacement relationships which address the effects of both
stiffness degradation and increased damping, the engineering community has often applied static
load-deflection relationships in seismic design situations. The degree to which this approach is
conservative or non-conservative is uncertain. What is certain, however, is that soil stiffness at
abutment contacts is a critical factor in overall bridge performance.

Our vision for this project is to develop load-displacement relationships for typical soils
adjacent to pile caps and abutments based on full-scale testing, which account for both dynamic and
cyclic effects. Incorporation of dynamic effects into passive earth pressure relationships would
create a validated definition of dynamic and cyclic soil response that has previously been
unavailable. Although shake table and centrifuge models can provide important guidance regarding
these issues, a reasonable number of full-scale load tests are necessary to provide ground truth
information. This research would fulfill this need. In terms of intellectual merit, the proposed
testing and analysis will provide practitioners with dynamic stiffness and damping factors based on
full-scale pile cap tests for a variety of soil types and densities, as well as for a range of vibration
frequencies and displacement levels. In addition, the test results, archived in the NEES database,
will become important benchmarks for researchers interested in calibrating/verifying new computer
codes or numerical models.

To obtain the data needed to develop dynamic, passive load-displacement relationships, a
field testing program will be conducted. This program will consist of laterally loading a concrete pile
cap without backfill and then reloading after backfilling with four different soils type. Since the
resistance provided by the backfill is a function of density, each backfill will be compacted to two
different densities and then tested. Loading will be accomplished by a combined use of a hydraulic
load actuator and NEES-UCLA's eccentric mass shakers. Initially, a hydraulic load shaker will load
the cap to a target deflection, at which point the actuator length will be fixed. Next, eccentric shakers
mounted atop the pile cap will be activated to produce a dynamic loading. The combined use of
actuator and shaker will provide levels and rates of strain previously unobtainable in full-scale
testing. The frequency of the shakers will be varied to obtain a range of loading frequencies. This
loading process will then be repeated at increasing levels of deflection. Subsequent data analysis will
quantify the observed passive earth pressure relationships in a series of curves and corresponding
equations. Additional analytical work will determine dynamic impedances of the backfill based on
spring and dashpot models.

The broader impacts of this project include improved design of structural components
through a better definition of the geotechnical component of soil-structure interaction. Additional
impacts include mentored educational experiences for participating university students as well as
increased awareness of earthquake engineering issues by junior high and high school students
participating in an outreach program centered on the research performed.